Studies on the Mechanism and Control of Enzyme Action

Studies are proposed involving nuclear magnetic resonance spectroscopy that will permit us to measure the kinetics of ligand binding and that will also provide an understanding of the spatial relationships that exist among substrates and effectors when they are bound to the enzyme. Acidic and basic groups on the enzyme associated with catalysis and substrate binding will be studied using the protocol of pH kinetics. Modification of CyS344 leads to enzyme inactivation. Whether this effect is due to CyS344 being at the active site, or whether modification simply prevents AMPS synthetase from assuming its native conformation, will be investigated using the protocol of site-specific mutagenesis. Adenylosuccinate (AMPS) synthetase if the first committed step in AMP biosynthesis from IMP and therefore plays a pivotal role in metabolism. How this enzyme acts as a catalyst and how it is regulated at the molecular level is crucial to an understanding of its fundamental role in metabolism.